Advanced Study Workshop on Black Sea Oceanography, 23-27 October 1989 in Cesme-Izmir, Turkey

ABSTRACT NARRATIVE Description: This proposal requests funds for the partial support of a workshop on Black Sea oceanography to be held October 23-27, 1989 in Cesme-Izmir Turkey. The cooperating P.I.s are Dr. Erol Izdar of Dokuiz Eylul University of Izmir, Turkey and Dr. James W. Murray, University of Washington. Dr. Izdar recently received an award to conduct this workshop as a NATO Advanced Study Workshop. The NATO grant covers the operational expenses of the workshop and travel expenses of non-U.S. NATO participants. This proposal is intended for the travel and expenses of 26 U.S. participants. The remaining U.S. participants, about thirteen will be supported by other means. The proposed workshop has a major objective of making an international interdisciplinary presentation of and the discussion the results obtained from the five cruises conducted on the Black Sea from April 15 to August 2, 1988 as the International Oceanographic Expedition of the Black Sea. This expedition was planned and organized by U.S. and Turkish scientists meeting in Izmir, Turkey in June 1987. The five separate cruises, each with a major and separate emphasis, were conducted by some 110 scientists from 39 institutions from eight countries. Scope: The proposed workshop shop is scheduled about a year after the completion of the at-sea phase. This interval has provided time and opportunity for significant data analysis. This international conference will be the first formal opportunity for a number of the 110 scientists from the different cruises, disciplines and countries to come together in one location and compare their data and discuss it in an interdisciplinary context. This workshop will fulfill an important phase detailed in a U.S.-Turkish Memorandum of Understanding (MOU) drawn up and signed at the June 1987 meeting. The MOU provided formal ship clearances to conduct research in the Turkish Exclusive Zone of the Black Sea. This clearances were necessary to open up sea areas of scientific interest to fulfill the objectives of the five cruises. The MOU also made reference to the conduct of workshop in Turkey approximately one year after the Expedition. This proposal fulfills objectives of the Science in Developing Countries Program in its exchange and transfer of scientific knowledge through international collaboration.